PPD: Science Access for All Students (SAAS)

HRD-#9453829 Center for Accessible Technology Lisa Wahl, Principal Investigator "Science Access for All Students (SAAS)" ABSTRACT The Center for Accessible Technology, working cooperatively with the NSF-supported State Systemic Initiative (SSI), California Advocacy for Mathematics and Science (CAMS) will conduct a one-year pilot project that will establish a model for improving instructional delivery for students with disabilities, in grades 3-6. The outcome is a plan for teacher enhancement that would be activated statewide first in elementary school science and later in middle school mathematics. The project, entitled Science Access for All Students, has the following goals: o Science curricula will be reviewed and made accessible for all students, o Science educators and staff developers in California will be prepared to meet the needs of students with disabilities, o A selection of elementary schools where students with disabilities are mainstreamed will be established as model sites for total inclusion in science curricula, o A replicable model for accessibility review and staff development will be disseminated, and o A proposal for statewide enhancement of teaching science and mathematics to students with disabilities will be developed. These goals will be achieved through a process of reviewing the accessibility of instructional materials, adapting instructional materials, providing on-site support and professional development, and disseminating findings and procedures.